REU Site: Biosystems Internships for ENgineers (BIEN)

The REU Site Program BIEN "Biosystems Internships for ENgineers" will
provide summer research opportunities in the Department of Electrical
and Computer Engineering (ECE) at the University of Maryland, College
Park (UMCP) for 10 undergraduate students per year in the applications
of electrical engineering (EE) to biosystems. Many breakthroughs in
modern medicine and science have been built on EE foundations, notably
in the technical areas of medical devices, nanotechnology and information
technology. The BIEN program builds upon a solid track record of research
innovation at the interface between electrical engineering and biology.
Examples of research topics reflect the breadth and depth of biosystems
applications in electrical engineering, ranging from nanotechnology and
microelectronic devices to autonomous control, information security,
system modeling, speech recognition, and neuromorphic signal processing.
Targeted students will be talented undergraduates who have completed
their sophomore year in electrical engineering and related programs.
Significant emphasis will be placed on recruiting students from under
represented groups and students from schools lacking similar research
opportunities. BIEN students will spend ten weeks in the summer on
campus involved in research in small teams consisting of undergraduates,
graduate students and faculty advisors. A program of seminars, workshops,
and field trips will complement and reinforce the learning experience.